Shape Statistics and Data Mining

This project is dealing with statistical methods for large and complex data
sets
involving shape aspects. One example for a method relevant to this project
is PRIM (Friedman and Fisher, 1999), a popular data mining algorithm with
a wide range of possible applications. PRIM has been applied to serval real
world
problems and two modifications have recently been developed
(Becker and Fahrmeir (2001) and LeBlanc et al. (2002)). Nevertheless,
no theoretical foundation of the algorithm exists which might provide a deeper
understanding of the algorithm. To provide such an analysis of PRIM and its
modifications
is part of the proposed project. In fact, a preliminary analysis revealed a
close connections
to much better understood methods based on minimum volume sets. This revelation
also shows the connection to "shape statistics". In another subproject the
investigator
will develop a novel projection pursuit type method for dimension reduction
which is
aimed at subsequent classification or mode hunting. This task involves both
algorithmic
and theoretical challenges, and again "shape" aspects (modes, antimodes, etc.)
come into play.

In more general terms it can be said that there is an acknowledged lack of
(theoretical) understanding of many statistical methods for large and
complex data
sets, and enhancing this knowledge is considered to be an important task of
statistics
(see Kettenring et al. 2003). This project is aimed at contributing to
this task both directly and indirectly: (a) directly by providing an
analysis of
some of the existing data mining procedures, and (b) indirectly by developing
novel methods for large and complex data sets including supporting
statistical theory.